Surface UV Irradiance and PAR Variability Over Antarctica

9317120 Gautier The budget of Antarctic surface ultraviolet and photosynthetically active irradiance will be investigated over a variety of spatial and temporal scales. This project will continue ongoing mapping work to characterize the spatial variability of surface irradiance over large geographical areas. The largest scale maps will cover the entire Antarctic coastline and Southern Ocean at a fifty kilometer resolution. Higher spatial resolution maps will be constructed for areas where extensive biological research is conducted, and for areas where polar vortex dynamics suggest important radiative phenomena. Satellite mapping will be augmented and refined by incorporating microwave satellite data for ice edge determination and by utilizing Monte Carlo radiative transfer methods to enable a greater variety of cloud simulations. Field work will include the installation during the austral spring of 1994 at Palmer Station, Antarctica a network of newly developed sensors to augment the National Science Foundation Ultraviolet Monitoring Network instrumentation there. This project will be the first to study the albedo of Antarctic peninsular snow, sea ice, and ocean surfaces in the ultraviolet and will provide important results for both physical and biological scientists. ***